Support of BGSW6: The 6th Biennial Geochemical SIMS Workshop; November 2-4, 2011 at the Outrigger Reef Hotel, Honolulu, Hawaii

The main goal of this workshop award is to gather specialists in Secondary Ion Mass-spectrometry (SIMS) who will present and discuss technical approaches to scientific problems, instrument operation and improvements, standards, and service to the national geochemical community. This workshop will bring together scientists and students from the nation's geological SIMS laboratories, instrument manufacturers, and other interested parties to discuss the state of the art of SIMS microbeam analysis techniques and scientific results. The BGSW is of great importance to the national geochemistry community since it represents the only regular meeting of researchers from geochemically-oriented SIMS labs in the United States. These facilities are vital for developing new geochemical SIMS applications and for providing access and expertise to scientists from across the country who require SIMS capabilities to carry out their own research.